ITR: Security Education in Embedded Computing

EIA-0082635
Williams, Ronald
University of Virginia

ITR: Security Education in Embedded Computing

Education and research will be tightly coupled as this effort focuses upon
security in networked embedded computer systems. The vulnerability of
networked computers to malicious or mischievous attack has become apparent
with several recent incidents. With the present trend to connect more
embedded systems to global networks, security is a growing concern. The
investigators on this project seek to identify aspects of well-studied
embedded computing characteristics that can be extended and applied to
issues of security.

The primary objectives of this work are to develop a theoretical foundation
for embedded system security and to expand the base of security education
for computer engineers. The theoretical foundation will build upon the
body of knowledge developed over past decades in availability, reliability,
and safety research. Educational modules will be made available and can be
used in the future to form the basis for a more extensive educational
program in this area. The potential impact of this effort will include a
significant increase in the sensitivity to embedded system security issues
among those computer engineers who participate in the project or are
exposed to the educational modules. Further, new applications of existing
techniques will improve the evaluation and design of embedded systems to
include security considerations. Both of these impacts are significant to
increase the integrity of networked embedded computer systems.